Platinum-Gold and Platinum-Tin Bimetallic Catalysts: Correlation Between Miscibility, Microstructure, and Activity

This work correlates the catalytic behavior of supported bimetallic catalysts with details of their structure and local composition. This class of catalysts is probably the most valuable from an economics point of view, although it represents a small fraction of the catalysts in use. Why some combinations work and others do not is still largely a mystery although some patterns are beginning to emerge.